Mathematical Sciences: Arithmetic of Elliptic Curves and Related Topics

This award is for support of the research in arithmetic algebraic geometry of Dr. Noam Elkies of Harvard University. Dr. Elkies proposes to continue his studies of the arithmetic of supersingular curves over function fields with finite constant field; by looking closely at these, he has already discovered sphere packings in certain high-dimensional Euclidean spaces that are more dense than any previously known. In addition, Dr. Elkies plans to investigate explicit modular equations from a computational viewpoint and connect these with the abstract theory of heights. This is research in the field of arithmetic algebraic geometry, a subject that combines the techniques of algebraic geometry and number theory. In its original formulation, algebraic geometry treated figures that could be defined in the plane by the simplest equations, namely polynomials. Number theory started with the whole numbers and such questions as divisibility of one whole number by another. These two subjects, seemingly so far apart, have in fact influenced each other from the earliest times, but in the past quarter century the mutual influence has increased greatly. The field of arithmetic algebraic geometry now uses techniques from all of modern mathematics, and is having corresponding influence beyond its own borders.